CAREER: Research in Algorithmic Theory of Self-Assembly

Self-assembly is the process by which simple objects
spontaneously assemble into complexes.
It is expected to ultimately become
an important technology at the level of atoms and
molecules. The development of researches in programmable
self-assembly is reaching the stage that we have
to understand it mathematically in order
to take full advantage of this new tool.
The goal of this research is to study
the computational aspects of self-assembly.

The objectives of this project includes:
(1) Solving concrete problems in the Tile Assembly Model,
including but not limited to
finding an approximation algorithm for the Minimum
Tile Set Problem (MTSP)
and characterizing the shape languages.
(2) Exploring different modelings of self-assembly, which
will give a more accurate abstraction of
the experimental results and will reflect the massive parallelism
in molecular/DNA computing.
(3) Studying the connections between
the algorithmic self-assembly and the classical theory
of computation, especially the communication theory
and the resource-bounded Kolmogorov complexity.

This CAREER project will integrate teaching activity
into the research of self-assembly.
The PI will offer graduate level courses in
molecular computing and closely-related fields such as
bioinformatics, and introduce the research
to undergraduate and graduate students in general theory courses.
This project will adopt the active learning techniques in teaching.
It is expected that the project will contribute to understanding
the engineering power of self-assembly, and to disseminating
the current research information to students as well.